VIth International Chlamydomonas Conference, to be held May 17-22, 1994, Tahoe City, CA

Abstract MCB9407107 Lefebvre Funds are requested for partial support of the VI International Conference on Cell and Molecular Biology of Chlamydomonas, to be held at the Granlibakken Conference Center in Tahoe City, California, May 17-22, 1994. Approximately 250-300 investigators from the U.S. and abroad are expected to attend. The meeting will be sponsored by the Genetics Society of America as one of its organismic group conferences. *** Chlamydomonas is a powerful model organism for genetic, cell biological, and molecular biological studies of a wide range of fundamental biological processes. The biennial Chlamydomonas conference is the only meeting which brings together investigators form different fields and disciplines to discuss the common approaches and methodologies being used with this organism. The meeting is important for the dissemination of new information, for establishing collaborations, and for promoting the exchange of mutants and molecular probes. %%%